Shock Waves and Geometry

The research under this award investigates connections between geometry
and the mathematical theory of shock waves. This includes a continuation
of the authors' recent work on developing a mathematical theory of
shock-waves that applies to the Einstein equations - the equations
that describe the time evolution of spacetime curvature, the gravitational
field according to general relativity. Shock waves are relevent here
because the compressible Euler equations appear as a subsystem of the
Einstein equations, and emerge exactly in the limit of low velocities
and weak gravitational fields. The work includes the construction of a
new cosmological model in which the expansion of the universe,
(as measured by the Hubble constant), is modeled as the effect of a great
explosion that generates a shock wave at the leading edge, something
like a nuclear explosion into a static background, except on an enormous scale,
instead of by the standard cosmological model in which it is assumed
that the entire universe is expanding at a rate measured by the Hubble law.
If successful, the results will provide the first and simplest model for
cosmology under the assumption that the Hubble constant measures only a
localized expansion, and consistent with the energy density and background
radiation levels observed in the universe today. This research also has an
interesting philosophical implication in that, if there were a shock wave present
from the Big Bang, then, in contrast to the standard model of cosmology,
there would be an associated loss of information that would make it
impossible to reconstruct the details of the initial event from
present data. In addition, a covariant version of Glimm's Method will be developed
in an attempt to provide the first general existence theory of shock wave
interactions for the Einstein equations. This is a step toward developing
principles that can be applied to the numerical simulation of shock waves
in general relativity. These studies will also have implications for
classical fluids because the Einstein equations provide a unique setting in
which natural geometrical constructs put a handle on the
fluid dynamics. This work dovetails with ongoing research
into how the large time behavior of shock wave solutions is related to the
geometry of the Lie Algebra that gives the scattering picture for
shock wave interactions. Thus this research connects the theory of
shock waves and geometry on several levels.

Einstein's equations of general relativity describe the large scale development
of the universe. Although they were first proposed more than eighty years ago,
they still pose formidable mathematical challenges. This research will continue
earlier work in which exact shock wave solutions of these equations were found.
A mathematical theory will be developed that leads to alternatives of the standard
"Big Bang" theory and that allows a general theoretical treatment of shock waves
within the general theory of relativity. Since these equations contain the
classical fluid dynamics equations as a special case, the research will also lead
to new insights for these more familiar problems.